Modular Representations and Cohomology

This research concerns the modular representation theory and
cohomology of finite groups of Lie type. A major thrust involves the
defining characteristic theory, in which the underlying module is
taken over a field having the "same" characteristic as the group.
The cross-characteristic theory is another theme; here, the
characteristic of the module differs from that of the group. In both
cases, the (already known) representations of continuous Lie groups provide a starting point for representations. This is most apparent in the defining
characterstic case, where an ambient algebraic group is available.
In cross characteristic, quantum groups plays a similar role, but,
so far, only for the finite general linear groups. The major
unsolved problems involve classifying the irreducible modules,
determining their dimensions and characters, and understanding their
homological properties. Issues involving Weyl groups (and Hecke
algebras), finite dimensional algebras (e.g., endomorphism and
quasi-hereditary algebras), the geometric theory of perverse
sheaves, etc. arise naturally in many attacks on these problems.
Parshall and Scott have developed and contributed to many of the
various approaches, and the current project will continue in that
direction, but also apply new (and deep results), such as the recent
solution of the Broue conjecture for symmetric groups (by Chuang and
Rouquier). For example, the authors will combine this work with
their own recent work relating Kazhdan-Lusztig polynomial character
formulas for representations of the special linear groups in the defining characteristic to the representations of symmetric groups.

The groups and representations studied here comprise the most
important basic ingredients for creating a general theory of all
finite group representations, Over the past century, similar
theories for continuous groups played a large role in quantum theory
and the theory of elementary particles. Their finite analogs have
already proved valuable in the design of communications and data
storage devices, though this finite theory remains very incomplete. In the future, one expects that the finite discrete worlds of computers and
communications will become even more important. The task of creating
a viable general theory of finite group representations--the
investigators' long-term goal--is, thus, a central problem
for the future. Finally, graduate and undergraduate students will
be fully involved in the project.